Structure-Preserving Algorithms for Solving Large Scale Eigenvalue Problems

Optimization of large scale eigenvalue computations is a long-standing
problem in computational mathematics and scientific computing community.
In this project, the PI and his collaborators will develop novel
structure-preserving algorithms for accurately and efficiently solving
large scale eigenvalue problems. Specifically, they will focus on large
scale eigenvalue problems of structured matrix pencils, quadratic
eigenvalue problems and nonlinear eigenvalue problems. They will study
structure-preserving Rayleight-Ritz subspace projection techniques for
solving these eigenvalue problems, that include the multi-level
orthogonalization process of Krylov subspaces, second-order Arnoldi
(SOAR) method and the nonlinear Arnoldi method.

The goal of the project represents a significant advance in a
frontier area of scientific endeavor and engineering design through
the application of computational mathematics and simulations. The
target applications include these types of eigenvalue problems
arising from simulations of electrical circuits and MEMS devices,
finite element analysis of structure dynamics, acoustics and
electromagnetics. These applications are of great technology importance
for next-generation electronics, automobile efficiency and safety and
energy-efficiency monitoring devices and others. The results of
this project will be both the description of effective computational
simulation strategies for these problems and also software made publicly
available.